Mount Holyoke Summer Research in Mathematics

We will continue to operate a research site for undergraduates at Mount Holyoke College. Each summer for the years 1998 through 2000 we will engage ten students drawn from U.S. colleges and universities in mathematical research. The students will work in groups of five, each group carrying out a different project under the supervision of a faculty member. The projects will involve extensive computer experimentation and be directed at mainstream areas of mathematical research in which experimental evidence promises to illuminate, and possibly even overcome, current impasses in purely theoretical attacks. The groups will meet separately several times a day but ample opportunity will be provided for students in different groups to exchange ideas. The projects for 1998 are codes and Kloosterman sums (Davidoff) and polynomial representations of knots (Durfee).